RUI/ROA: Support Tools for Memory-Based Filesystem

Abstract:

The Conquest hybrid disk/memory file system takes a new approach to
filesystem design by storing most information in RAM, devoting disk
only to large files. Preliminary results have shown great benefits
from the Conquest approach, despite the fact that the on-disk portion
of the file system has yet not been optimized. In this research, we
will investigate the optimal method of storing those large disk-based
files. After reviewing prior research in disk layout, we will design
and implement a layout that is optimized for storing large files in an
environment that is free of metadata and small files. We will also
develop a "cleaner" that will dynamically adjust the arrangement of
on-disk data to optimize the performance of disk access. Finally, we
will take measurements to quantify the improvements brought by the new
approach.